Development of an Undergraduate Computer-aided Design and Test Laboratory.

In this project, a modern, computer-aided design and test laboratory will be constructed. It will include ten integrated electrical engineering workstations consisting of an interconnected IBM PC/XT with Hewlett Packard electronic benches attached. These workstations will be used to teach modern computer-aided testing, measurements and experimentation in circuits, electronics and advanced laboratories. The result is expected to be a significant improvement in the laboratory education of electrical engineers